CPS: Small: Control Design for CyberPhysical Systems Using Slow Computing

CPS:Small:Control Design for CyberPhysical Systems Using Slow Computing

The objective of this research is to develop principles and tools for the
design of control systems using highly distributed, but slow, computational
elements. The approach of this research is to build an architecture that
uses highly parallelized, simple computational elements incorporating
nonlinearities, time delay and asynchronous computation as integral design
elements. Tools for the design of non-deterministic protocols will be
developed and demonstrated using an existing multi-vehicle testbed at
Caltech.

The motivation for using "slow computing" is to develop new feedback control
architectures for applications where computational power is extremely
limited. Examples of such systems are those where the energy usage of the
system must remain small, either due to the source of power available
(e.g. batteries or solar cells) or the physical size of the device
(e.g. microscale and nanoscale robots). A longer term application area is
in the design of control systems using novel computing substrates, such as
biological circuits. A critical element in both cases is the tight coupling
between the dynamics of the underlying process and the temporal properties
of the algorithm that is controlling it.

The implementation plan for this project involves students from multiple
disciplines (including bioengineering, computer science, electrical
engineering and mechanical engineering) as well as at multiple experience
levels (sophomores through PhD students) working together on a set of
interlinked research problems. The project is centered in the Control and
Dynamical Systems department at Caltech, which has a strong record of
recruiting women and underrepresented minority students into its programs.